DNA Sequence Core Facility

This award provides funds for the purchase of a central computer, or network server, and seven powerful computer workstations that will be linked to the server through an existing campus-wide fiber optics cable. The computers will be used by eight research groups for storage and analysis of DNA sequence data, and will be available to additional groups of investigators whose computational needs are of smaller scale. The researchers who will benefit from the award study basic aspects of the genetics and development of a variety of organisms, both plant and animal. Since the development of accurate and efficient DNA sequencing methods about 12 years ago, the sequence of roughly 25 million basepairs of DNA from a large variety of organisms has been determined. Much of the known sequence data has been deposited in GENBANK, a DNA sequence database sponsored by the Federal government. Comparison of newly obtained sequence data with that already in the database has become a routine tool in the analysis of gene structure and function. The increasing sophistication of the software needed for such analysis, as well as the rapid increase in the size and complexity of the database, virtually requires that powerful computer workstations of the type been purchased be used if database searches and other computationally intensive analyses are to be performed within a reasonable time period.